Expedited Award for Novel Research: Paradigms for Engineering Design - Exploratory Research

Under this project a series of paradigms will be developed and a hypothesis will be formulated whereby this novel approach to the design process can be tested against existing case studies of engineering design failures. The research will develop, test, and disseminate the paradigms.